Phase Transitions in Low Dimensional Systems

Research will be conducted on equilibrium phase transitions in both two-dimensional arrays of Josephson junction in a magnetic field and in absorbed systems such as hydrogen and oxygen on tungsten. Studies will also be undertaken on the stability and growth of solid layers on a substrate. A model developed for the stability of strained epitaxial layers will be extended to superlattices and elastic substrates.